Discrete Frechet Distance and Its Biological Applications

In this project, based on applications in protein structure alignment
and its visualization, we will investigate several fundamental problems
regarding the discrete Frechet distance. These include improving the
computation time for protein structure alignment by taking into account
practical conditions (e.g. the lengths of the segments connecting neighboring
alpha-carbon atoms are almost uniform), and simultaneously simplifying a pair
of chains for realistic visualization, etc. Based on these theoretical
investigations, we also plan to build a prototype software system, available
in the public domain, for these applications.

Protein structure alignment is an important and fundamental technique used to
understand the evolution of proteins and to predict their functionality.
This understanding is crucial for the identification of the cause of certain
diseases and for the development of new drugs. Here we propose a new approach
based on the discrete Frechet distance to improve the quality and speed of
protein structure alignment. Our proposal will consider fundamental questions
with regard to this technique. The resulting software tools will be accessed
by the public for education and research. This project will help support
and train several graduate students at Montana State University.